Universities' Research Conference; Cambridge, Massachusetts;Fall 1988 and Spring 1989

The NBER Summer Institute brings together economists from universities, government and international organizations for a few days or a few weeks of seminars, workshops, conferences, and collaborative research. Last year's Summer Institute included 316 economists from 94 universities and academic institutions. Similar numbers are expected for the 1987 Summer Institute funded by this grant. The Summer Institute provides a unique opportunity for economists to work closely with others in their areas of specialty for extended and generally intense periods of research. Although numerous conferences permit researchers a few hours in which to exchange ideas, only NBER's Summer Institute lasts long enough to allow serious collaboration among economists from several institutions. While there are, of course, presentations of work nearing completion, emphasis is placed on the "workshop" aspects of the program, where new ideas are raised, preliminary research ideas are developed, and plans for joint or coordinated research efforts are established. The Summer Institute is organized into six programs: economic fluctuations, financial markets and monetary economics, international studies, labor studies, productivity, and taxation. Each program has its own group of participants and its own structure. Although there is considerable variation among the programs, a typical Summer Institute program will last for one to three weeks, with seminars each morning and afternoon devoted to individual research. Some programs conclude with a more formal conference. Programs may include a variety of subjects or they may be organized around specific topics. Workshops are also planned on supercomputers and data archives.